U.S.-Italy Cooperative Research on Prediction of Floods and Precipitation Events

This award will support collaborative research between Prof. Jose Salas, Colorado State University, and Prof. Renzo Rosso of the Politecnico di Milano in Milan, Italy. The researchers intend to collaborate in the area of flood hazards and precipitation prediction. As a main objective they plan to develop, document and exchange information concerning prediction of extreme floods and short term precipitation events. The investigators' plan calls for the use of multivariate distribution functions, maximum likelihood techniques for regional flood estimation, and the theory of point and cluster processes for prediction of precipitation. Each side has ongoing research aimed at 1) prediction of extreme floods based on available data at more than one site, 2) regional flood frequency analysis based on parsimonious mixture models and improved estimation techniques, and 3) analysis and prediction of short term precipitation processes. The Italian side has expertise in the area of flood prediction based on mixture models, estimation concerning regional flood frequency and the corresponding software, and in the determination of external properties for some alternative models applicable to short term rainfall. The U.S. side brings to the collaboration expertise using bivariate general extreme value distributions and the experience in estimation and application of short term rainfall models for a large data base. Consequently, this collaboration and the attendant exchange of information and techniques should prove to be mutually beneficial.